Dissertation Research: Investigations of a Middle Woodland Enclosure at Pinson Mounds

This project examines the organization and ceremonial use of space within a Middle Woodland enclosure in order to document the presence of activity areas and develop rigorous sequences of architectural development. The student will excavate a circular enclosure at Pinson Mounds Site, in western Tennessee. This is one of the largest Middle Woodland earthwork centers. Since the beginning of archaeological inquiries about prehistoric remains in the eastern United States, scholars have sought to assign earthen enclosures to the religious and ceremonial realm of culture. Recently, scholars have suggested that enclosures were major foci for inter- and intra-group interaction. This proposal will test these two models in order to discover how Middle Woodland groups planned and structured enclosures and used space. This research will extend our knowledge about the cultural occupation in Middle Woodland sites and help test models of group interaction patterns. It will also provide new information about the use of space in tribal societies and architecture's relation to social dynamics.